Diatom Biostratigraphy and Antarctic Glacial History ThroughReworked and In Situ Microfossils

The study of glacially reworked sediments and microfossils is essential toward reconstructing the geologic and glacial history of Antarctica. Evidence from reworked Pliocene marine diatoms and fossil wood in the Sirius Group of glacial-sediments, throughout the Transantarctic Mountains, indicate a massive early Pliocene destruction of the late Pliocene antarctic ice sheet, marine flooding of interior basins and polar warmth through the Pliocene. The chief objectives of this project are to substantiate the suggested Pliocene deglaciation and to improve the resolution of Pliocene diatom biostratigraphy in antarctic interior basins, which will help date the reworked assemblages. The improved Pliocene diatom chronology will aid in determining the timing and magnitude of late Neogene ice-volume change and marine transgression; events which have implications for climatic, geologic, oceanographic and evolutionary biogeographic studies within and beyond Antarctica and the Southern Ocean.